In-Plane Behavior of Masonry Walls Subjected to Seismic Actions

The prime objectives of this three-year U.S.-Yugoslav cooperative research project in earthquake engineering between Miha Tomazevic at Lubljana's Institute for Testing and Research in Materials and Structures and James L. Noland, Atkinson-Noland Associates are to: (1) develop a standardized testing procedure to determine wind, earthquake resistence of masonry walls; and (2) a mathematical analytical model for purpose of predicting the behavior of masonry buildings subjected to earthquakes. By testing different kinds of masonry walls in different countries, the investigators expect to develop an international model that can be used in the earthquake analysis and design of masonry buildings in the United States and European community. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is funded through a joint fund consisting of matching contributions from the U.S. and Yugoslav governments. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. Grants are made to the principal Yugoslav institute. Dollar funds are included for U.S. scientist travel to Yugoslavia and for Yugoslav scientists' living expenses in the U.S.